Clearinghouse for Developing the Infrastructures of Science and Technology in the Former Soviet Union

INT-9809923
Kirk

This award supports the American Association for the Advancement of Science [AAAS] in advancing scientific infrastructures in the successor states to the USSR and European Communist regimes. The activities will develop cooperative networks of and information exchange between U.S. scientists and researchers from this region; assist these countries in developing new scientific structures based on competition, peer review, and democratic norms; and will encourage the development of independent non-governmental scientific societies. This award will fund: proposal writing workshops in Yerevan (June 1998) and Novosibirsk (September 1998); a program management workshop in Yerevan (May 1999); science writing and data exchange workshops in Prague and St. Petersburg; and AAAS Society Fellows for the AAAS and Rural Sociology Society.

These activities fulfill the program objectives of bringing together leading experts in the U.S. and Central and Eastern Europe to combine complementary efforts and capabilities in areas of strong mutual interest and competence on the basis of equality, reciprocity, and mutuality of benefit.

***